CISE Research Instrumentation: Distributed Computing and Real-Time Networking Research

CDA 9529442 Vaidya, Nitin Welch, Jennifer Zhao, Wei Amato, Nancy Texas A & M University Texas Engineering Experiment Station College Station, TX 77843-3000 Distributed Computing and Real-Time Networking Research This proposal requests funding for a homogeneous workstation cluster and ATM-FDDI networking hardware to aid research in distributed computing and real-time networking. The equipment is useful for several projects, including: (1) Real-time communication in heterogeneous networks: This project develops techniques for guaranteeing deadlines in heterogeneous networks popular in mission-critical systems. Requested equipment enables experimentation with a network consisting of ATM and FDDI. (2) Algorithms for distributed systems management: Algorithms are developed for managing performance and faults in distributed systems, using formal analysis and experimentation. Realistic assessment requires a dedicated cluster of homogeneous workstations to allow undisrupted testing and trend prediction. (3) Failure recovery schemes for parallel applications: Design of efficient recovery schemes is necessary to minimize execution time in presence of failures. The requested workstations provide a homogeneous computing environment necessary for quantitative comparison of different recovery schemes. (4) Distributed shared memory (DSM) system design: Requested equipment provides a workstation cluster and high-speed networking for development of an adaptive fault-tolerant DSM capable of achieving high performance